SGER: Connecting the Depletion, Wetting, and Rheological Behaviors of Polymer Grafted Nanoparticles in Polymer Melts

ABSTRACT
Proposal Number: CTS-0649081
Principal Investigator: Green, David L.
Affiliation: University of Virginia Main Camous
Proposal Title: SGER: Connecting the Depletion, Wetting and Rheological Behaviors of Polymer Grafted Nanoparticles in Polymer Melts

The aim of the proposed research is to connect the thermodynamics of depletion flocculation and interfacial wetting to the dynamics of dispersing the polymer-grafted nanoparticles into semi-dilute and concentrated polymer solutions.

INTELLECTUAL MERIT:

The static and dynamic behaviors of the polymer-grafted nanoparticles will be studied in semi-dilute and concentrated polymer solutions to define a wide array of complex environments into which polymer-grafted nanoparticles are dispersed. Employing a bottom-up methodology, model systems consisting of polydimethylsiloxane (PDMS)-grafted silica nanospheres in PDMS solutions and melts will be used to regulate the interactions between the well-characterized nanoparticles. This regulation will be achieved by systematically controlling a variety of parameters such as the grafting density of PDMS on the particle surface and the chain length of the free polymer in the solution or melt. Detailed measurements will be made to connect the phase diagrams to the flow behaviors of the polymer-grafted nanoparticles and these behaviors will be contrasted against predictions from self-consistent mean-field models to compare experiment to theory. These results will be used to determine a rational basis for optimizing the end-use properties of advanced materials.

BROADER IMPACT:

The PI will utilize the Research Experience for Undergraduates program to establish a pipeline of underrepresented students for engineering graduate study at the University of Virginia. By targeting these programs to specific geographic areas and populations, the PI hopes to increase the number of woman and minority PhDs in chemical engineering.